Active Vision Workshop, Chicago, Illinois, August 5-7, 1991

This award provides funds for a Workshop on Active Vision Research, to be held in Chicago, Illinois on August 5-7, 1991 to take advantage of the occurrence of the Annual Meeting of the Cognitive Science Society in Chicago immediately following the Workshop. A growing number of researchers recognize that the ability to actively combine computer vision with physical/mechanical behavior is vital to achieving useful and robust perception for a robot interacting with a complex, dynamic world. In this paradigm, termed active vision, the vision process is mist readily understood in the context of the behaviors that the system is engaged in; these behaviors may not require elaborate categorical representations of the three- dimensional world. Thirty leading researchers will meet to discuss research opportunities and funding needs in this emerging field. They will discuss the motivations for active vision, recommend research priorities, and identify important influences on the field, such as emerging computer, camera, and robotic technologies.